REU Site in Marine Chemistry and Marine Geology and Geophysics at the University of Washington

This award supports a Research Experience for Undergraduates (REU) Site proposal to provide research experiences for selected undergraduates in marine sciences, with specific emphasis Matrine Chemistry and Marine Geology and Geophysics, to acquaint them with the excitement and opportunities of academic research and to encourage them to pursue graduates studies and a career in ocean sciences.